Transforming Security Research Workshop

This workshop brings together Principal Investigators involved in national security relevant projects funded through the 2008 DoD Minerva Research Initiative; the NSF National Security, Conflict and Cooperation (NSCC) competition; Minerva Research Chairs; and Fellows funded through the RCUK Global Uncertainties Programme.
The objectives of the workshop are to investigate the commonalities between research programs, determine whether there are interesting opportunities that may build or bridge between differing research methodologies and identify potential breakthroughs, and barriers to advancement in the evolving field of security research, particularly longer term, transformational opportunities..
The intellectual merit and broader impacts of the workshop are significant. The activity will produce insights into what methodologies or combinations of methodologies are most appropriate to address security questions of direct policy relevance, may spawn collaborations the outcomes of which will have direct implications for security policy and practice, and will encourage cross-Atlantic collaboration in security-related efforts